Partial Support for the ACM Second Conference on Computers, Freedom, and Privacy; Washington, D.C.; March 18-20, 1992

This is a multi-disciplinary conference that brings together leading researchers, commentators and policy makers concerned with issues of the impact of computer technology on society. The conferees survey the implications for privacy and freedom of the interaction of computers, computer data banks, and computer networks with electronic mail, computerized personal information, direct marketing information and government data, including data related to human genomes. A book with ten articles on the subjects of the conference will be published. The Conference is scheduled for March 18 - 20, 1992 at the L'Enfant Plaza Hotel in Washington, D.C.